Nuclear Physics 2007 Gordon Research Conference

This is proposal to seek funding for the support of junior scholars at the Gordon Research Conference in Nuclear Physics to be held July 15-20, 2007 in Newport, RI.

The main scientific focus of the conference is the discussion of state of the art experimental and theoretical research in nuclear physics between members of the community working at different research forefronts. Participation of the junior scholars supported by this proposal will enhance the exchange of ideas and provide a greater cross-fertilization across subfield boundaries.

The funding of junior scholars is a particularly important aspect of the further reach or broader impact of NSF support of this conference.